The Role of Osmolarity in the Recovery of Sanitary Indicator Organisms from Stressed Aquatic Environments

The objective of this research is to study the recovery of stressed and partially injured organisms versus osmotic pressure of the recovery medium. Environmental isolates of Escherichia coli will be injured by exposure to chlorine, and to oligotrophic water such that greater than 80 percent of the surviving population incurs sublethal injury. Following this stress, the debilitated organisms will be inoculated into diluted preparations of enrichment media to obtain osmolarities between 30 to 300 mOsmols. The amount of sublethal injury resulting from the stress and the capability of the damaged cells to repair will be determined by comparative plate counts on nonselective and selective media. Laboratory results will be applied to recovery of sanitary indicator organisms from chlorinated secondary sewage and oligotrophic waters, and compared with current assay methods.